Developmental Regulation of Human B-like Globin Genes

The ultimate goal of this research is to understand the molecular mechanisms that account for the switch from human fetal gamma to adult beta-like globin gene expression, a paradigm for the study of developmental control involving both gene activation and repression. The specific objectives of this proposal are to identify regulatory sequences involved in human gamma- to beta- globin gene switching using transgenic mice, and to isolate the transcription factor gammaPE. The gamma-globin gene promoter plays an important role in down-regulating the beta-globin gene in the embryo. Using transgenic mice, the element responsible for this silencing mechanism will be identified. GammaPE is a negative regulator of gamma-globin gene expression, and may therefore be important in down-regulating the gene in the adult. The role of gammaPE will be tested in transgenic mice by deleting and inserting gammaPE binding sites near the gamma-globin gene. A cDNA for gammaPE will be obtained by screening erythroid and brain expression libraries using gammaPE binding sites as a probe, or gammaPE will be purified from nuclear extracts and subsequently cloned. Isolation of a gammaPE clone will allow for more detailed examination of the functional role of gammaPE in future studies. %%% Elucidation of this regulated switch in gene expression can act as a paradigm for developmental control of gene expression.